Undergraduate Physics Research

The Joint Institute for Laboratory Astrophysics and the Department of Physics at the University of Colorado, Boulder, will conduct a summer program for nine undergraduates in the fields of atomic and molecular physics, condensed matter physics, elementary particle physics, gravitational physics, nuclear physics, optics, astrophysics, and geophysics. Students will be expected to master at least a part of a large task and at the end of the summer will give short seminars on their work. Half the students will come from the University of Colorado and half from other colleges and universities in Colorado and contiguous states. Special efforts will be made to solicit applications from minorities. This project is supported under the Program of Research Experiences for Undergraduates to help ensure an adequate supply of scientists for the future.